CCD-based Laboratory Detector System for x-ray Crystallography

This development project will provide a CCD-based x-ray area detector system for collecting and processing diffraction data form protein crystals and other macromolecular assemblies using laboratory x-ray sources. The detector will have a 115 mm- diameter active area, 1024X 1024 resolution elements, a dynamic range of 4000, a DQE of up to 0.6, and a readout time of <6 seconds. The system will be a fully-tested, integrated data- collection package, and include the detector, a UNIX-based workstation, software, a goniometer, and documentation. The performance, cost, availability and reliability of each component will be considered n the design, so that the system can be widely distributed. The individual components will be thoroughly characterized, and the complete system tested extensively by collecting data from a variety of protein crystals. This integrated system will be ready for use, without need for further hardware or software development.